Video Taped Seminar Series II on Interdisciplinary Aspects of the Electronic Superhighway

9523976 Hoffman This proposal requests partial support to continue a successfully NSF funded project. The seminar series, which is held on the third Tuesday of each month discusses issues important and relevant to the "information Superhighway" like privacy, advertising, crime, regulatory agencies and others. This project will allow the institution to continue this series of seminars and will have the series recorded so persons, not able to attend the session, will be able to view the seminar of choice at a later time. In addition compilation of information from the series will be added to the electronic library of Seminar Series documents and made available via the World Wide Web.